Salvage and Study of an Exceptionally Preserved Silurian Soft-bodied Fossil Biota

This grant will support the urgent collection of Silurian fossil invertebrates from threatened exposures near Waukesha, Wisconsin. The site (Brandon Bridge Quarry), ca. 420 million years old and reported in Science in 1985, is extremely rare in preserving soft-bodied invertebrates. The locality will be destroyed by commercial mining activity within one or two years. The project also involves site stratigraphy, sedimentology and taphonomy, and initial preparation the Silurian biota. Recovery and study of these fossils will lead to a much better understanding of the diversity and paleoecology of marine life during the Silurian and the phylogeny of marine invertebrates.